In-Situ Use of Ozone - A Study of the Feasibility of Using Ozone in Place of Air in Subsurface Venting Operations

This is a project to study the engineering feasibility of a concept to use ozone in place of air as an agent for venting or otherwise removing chlorinated organic chemicals from soil contaminated by these compounds. Specific objectives include determination of the limits of reactivity of ozone with the target organic compounds and engineering constraints on the use of this concept including the effect of background organic substances, initial contaminant concentrations, soil type and moisture content. Contamination of groundwaters by organic chemicals leaking from underground storage tanks, surface storage facilities and spills is a significant environmental problem in the United States. The results of this project may be applicable to engineering design of processes and systems to removal these contaminants from soil.